Scientific Community On-Site Assessment Workshop for Robust Intelligence

NSF currently sponsors an intensive summer research workshop series in human language technology and robust intelligence, organized and hosted by Johns Hopkins University. These workshops have exhibited a relatively unique model of interactive peer review, dynamic expert team generation, research acceleration via a condensed and unusually close collaboration environment and intensive student mentorship. A Scientific Community On-Site Assessment
Workshop (OSAW) is being held on July 30-31, 2008, to review and and improve upon this model and investigate the potential for its extension to new scientific disciplines. During the OSAW, a team of expert research-community stakeholders observes current summer workshop processes, interviews participants, receives detailed briefs on prior peer-review, topic-selection and research team recruitment processes, and reaches findings and makes recommendations regarding these goals.

The OSAW workshop will contribute to the progress of science by: (1) improving the existing NSF-sponsored intensive summer workshop series that has already engaged over 300 international participants and lead to hundreds of peer-reviewed publications and major scientific innovations, (2) the insights and conclusions reached by the OSAW, especially with respect to the interactive peer-review and intensive mentorship processes employed by the summer workshop, have the potential to inform and provide ideas for other peer-review and mentorship processes, such as utilized by NSF and other organizations, (3) the recommendations of the OSAW will provide a roadmap for the extension of the intensive summer-workshop model to other fields, with potential for the accelerated scientific progress and unique collaboration framework already realized by this model in human-language-technology fields.